Symplectic Field Theory and related topics

DMS-0204603
Yakov Eliashberg

The proposal is devoted to Symplectic Field Theory (SFT) whose
framework was recently described by A. Givental, H. Hofer and the
author of this proposal. SFT is a large project which lies on the
borderline between Symplectic Geometry, Hamiltonian Dynamics,
Enumerative Algebraic Geometry, Low-dimensional Topology, Theory of
Integrable Systems in Mathematics, as well as String Theory and
Mirror Symmetry in Theoretical Physics. Among the goals of the theory:
- definition of new, SFT-based invariants of symplectic and contact
manifolds and their Lagrangian and Legendrian submanifolds;
- applications to the Low-dimensional topology;
- development of new tools for proving enumerative results about
periodic orbits of Hamiltonian systems;
- understanding of the appearance of integrable hierarchies in
Gromov-Witten theory.

Symplectic Field Theory has already proved to have important
applications. In particular, the ideas of the SFT were
instrumental in the solution of several old outstanding questions
in Symplectic Geometry and Hamiltonian Dynamics. There is a hope
that some current research in the SFT may bring some breakthrough
in the low-dimensional topology. Further development of the theory
should also bring new applications not only inside Mathematics, but
possibly in some areas of Theoretical Physics, including String
Theory and Mirror Symmetry. Besides developing new applications the
work under this project will also concentrate on building the
rigorous foundations of the SFT.